Linear Bolometer Arrays for Infrared Spectrometers

This Small Business Innovation Research (SBIR) Phase I project is in the general area of analytical and surface chemistry and in the subfield of photodetector technology. The focus of this activity is the development and evaluation of linear arrays of bolometer elements for use as uncooled detectors in infrared spectrometers. These arrays will incorporate recently-developed thin films with high temperature coefficients of resistance and be fabricated using lithographic and ion milling techniques. The arrays will contain 1000 or more elements to obtain good resolution in the 4000-400 wavenumber range. Element detectibility should be comparable to that presently obtainable with single element uncooled detectors, but detector response should be much more rapid. Incorporation of these arrays in IR spectrometers offers the potential of developing instruments in which major optical components are stationary. Advantages include high measurement speed, ruggedness, and reduced cost which portend a desirable commercial instrument.